Memorandum of Understanding between GSA and NSF (Financial Management Line of Business)

MOU between GSA (managing Partner Financial Management Line of Business) and NSF to support the continued maintenance of a Project Management Office (PMO) that provides end-to-end project management to FMLoB initiatives.